RUI: Insulin Receptor Down Regulation in Erythrocytes

The effectiveness of most protein hormones is monitored in part by the number of cell surface receptors for these hormones. By internalizing the number of cell surface receptors after binding hormone (down regulation), a cell can regulate its sensitivity to that messenger. The insulin- insulin receptor complex is one system that responds in this fashion. Any deviations in this self- monitoring mechanism can have profound effects on the ability of the cell to respond to these hormones, and this in turn can have great impact on cell function. The goal of this proposal is to determine the roles that particular molecules, notably membrane lipids, cytoskeletal proteins and phosphorylated membrane proteins have on this process. The cell system used is the human erythrocyte. In the lipid studies, the lipid content or fluidity will be altered, and the effects on down regulation studied. In the cytoskeletal work, chemical and antibody-induced changes, and pathologically -altered cytoskeletons will be studied. Chemicals know to alter protein phosphorylation will be used to determine the impact of this protein modification on down regulation. These studies should lead to a clearer understanding of the role of these components in this process.